An Intergrated Particle Sizing System Covering the Size Range Between 100 Micrometers and Molecular Dimensions

The Departments of Mechanical and Chemical Engineering at Yale University will purchase an electric spray source and accessories for studying particles ranging in size from atomic dimensions to 100m. The electrospray source will be optimized to extract high mobility ions and macroions from electrosprays of volatile liquids. Applications include a large range of processes, from spray combustion to mass spectrometric analysis of large biomolecules.